Operation SMART High School Age Component

The Girls Clubs of America (GCA) plans to develop over a three year period informal science learning activities to increase the participation of women aged 14-18 in mathematics and science. These materials are part of an overall program, "Operation SMART," that is a major national commitment by the Girls Clubs of America to include science and mathematics education as a major component of GCA activities at all age levels. Prior projects have developed and implemented successful materials directed at elementary and middle school girls; the present project extends this effort into the critically important high school age years. The materials will be developed by project staff in association with developers at the Educational Development Center (EDC), piloted and tested in four Girls Clubs sites along with training chapters nationwide. A publisher will be identified for national distribution and sales of activity materials sets and a book-length publication designed for use by education programs of other youth-serving organizations. A partnership with the Business and Professional Women's Association (BPW/USA) and its 3400 local chapters and with the AAAS Linkages Project will create many non-Girls Club sites. Dissemination to other youth- serving organizations will be carried out through the National Collaboration for Youth. As a result, Operation SMART's high school age materials should reach several hundred thousand young women. Foundations and businesses will provide substantial additional project support; approximately 51% of the total $ l.4 million project budget is requested from NSF.